Nuclear and Elementary Particle Astrophysics

Abstract AST-9420759 Schramm, David N. Dr. Schramm will continue to lead a research effort with a center of activity that connects particle physics, nuclear physics, cosmology, and astrophysics. Topics of interest include: nucleosynthesis from the big bang; the formation of galaxies and large scale structure and their interrelationship with dark matter; ultra-high energy cosmic rays; and the evolution of galaxies and globular clusters. ***